Quantum Chromodynamics, Electroweak Physics and Beyond

Research in theoretical elementary particle physics will include
studies of: (i) the partonic structure of the nucleon within the
framework of perturbative quantum chromodynamics, (ii) the origin of
electroweak interaction symmetry breaking; and (iii) observable signatures
of new physics, such as supersymmetric particles and extra dimensions. Partons
are fundamental constituents (i.e. quarks and gluons) of observed nuclear
particles, such as protons and neutrons. Electroweak interaction symmetry
breaking is intimately related to the origin of masses of fundamental
particles. New physics scenarios, such as supersymmetry and extra
dimensions, if discovered, could extend our understanding of the extremely
successful Standard Model of elementary particle physics to a much deeper
level.